Symmetric Functions and Macdonald Polynomials

Morse is working on a project involving a filtration for
the space of symmetric functions that depends on a positive
integer k. In earlier work, Lapointe, Lascoux, and Morse
introduced new families of polynomials that lie in these subspaces,
and they made a number of assertions relying on their characterization
of these elements. Among these conjectures is one stating
that their elements form a basis for the k-subspaces of the symmetric
function space and that the Macdonald polynomials expand positively on
this new basis. More generally, their claims lead to a family of
positivity conjectures which will provide a natural refinement for
many fundamental concepts in symmetric function theory. For example,
their elements appear to play a role in the k-subspaces analogous to
the important role that the Schur functions play for the symmetric
function space. Morse is working on proving these conjectures and is also
investigating the possible representation theoretic interpretation
for these polynomials.

The theory of symmetric functions is a classical part of
mathematics with a wide variety of applications in fields
including physics, engineering, and computer science.
Recent development in the study of symmetric functions
was made with the introduction in 1988 of a new family of
symmetric functions called the Macdonald polynomials.
Remarkably, these polynomials have also been found to play an
important role in areas such as geometry, representation
theory, and many-body physics. The successful completion of
this project would prove important properties of the Macdonald
polynomials and more generally, would provide a natural refinement
for the fundamental concepts in symmetric function theory.